Multi-Protocol Architecture as a Paradigm for Achieving Inter-Operability

9305115 Ammar A significant obstacle to achieving heterogeneous system interconnection is the need to maintain compatible network protocols on all communication systems. Protocol standardization and profiling has long been viewed as a way to overcome this obstacle. The exclusive nature of this approach, however, presents certain limitations. Among them are exclusion of sometimes superior technology and the necessity for strict agreement among systems. This research will consider an inclusive approach for achieving inter-operability based on the use of multi-protocol architectures, that is systems with a mixture of protocols from different standards families. Inter-operability in these architectures is achieved by 1) providing sufficient overlap in the protocols that systems implement and 2) equipment systems with the mechanisms that can be used to determine this overlap. The work will have two major components: a model building activity which will help focus the work and help in identifying problems and solutions and a parallel implementation activity based on a case study of Internet and OSI protocol suites. ***